A Test of Planktonic Foraminifer Sensitivity to Inter-Annual Changes in Upper Ocean Environments

This study will test the sensitivity of planktonic foraminifer assemblages to changes in the upper ocean environment in the North Atlantic gyre. The study will compare time-series of species abundances in sediment trap samples collected in the long-term Ocean Flux Program at Bermuda. Analyses of biweekly samples collected from 1989 to 2002 will be compared to hydrographic records from station S and biogeochemical data from the Bermuda Atlantic Time-series study (BATS).